On-Site Research to Improve the Quality of Education Statistics

This award extends for one year the American Statistical Association project entitled "On-Site Research to Improve the Quality of Education Statistics". The plan for subsequent years is to effect a merger with similar on-site research programs conducted at the Bureau of the Census and the Bureau of Labor Statistics. The program, which was initiated at the National Center of Education Statistics in 1986, brings senior research fellows and associates to the Center for periods of up to one year. Its broadbased goal is to help bridge the gap between academic scholars and governmental scientists by exposing the fellows and associates to methodological problems and policy issues likely to be encountered only in a large scale Federal statistical agency and by exposing government social scientists to new theoretical developments which might have application to their work. Residence at the Center allows fellows and associates to carry out research that would be difficult if not impossible to do without ready access to its data resources which the program provides.